Engineering Research Equipment Grant: Surface Roughness Measurement During Initial Stages of Wear Using Scanning Tunneling Microscopy

Matching funds are provided for the acquisition of a scanning tunneling microscope for use in tribological studies. The phenomenon of immediate interest is the initial stage of wear of thin film magnetic disks with metallic or oxide coatings.